Japanese/American Workshop on Automated Reasoning, June 3-5, l991

A three-day workshop on automated reasoning is proposed. The workshop will be held at Argonne National Laboratory on June 3-5, l991 and will be coordinated by Argonne National Laboratory and by the Institute for New Generation Computer Technology (ICOT) of Japan. The objective is to provide an open forum for discussion between American and Japanese researchers on current achievements and recent advances in automated reasoning. The workshop will feature presentations on such topics as classical automated theorem proving, rewriting systems, prolog technology, special-purpose reasoning methods, and open problems. Participants will also be given ample time for informal and open discussions. After the workshop is over, joint research projects will be undertaken. Thus, the workshop will have a long-term benefit of promoting scientific advances in a spirit of healthy cooperation.